Optical Observations of Black Hole Binaries and Related Systems

Bailyn, Charles AST-9730774 Dr. Bailyn will continue his research into black hole X-ray novae, binary systems in which a black hole accretes mass from its companion star. He will carry out a program of optical and infrared observations of transient X-ray sources using primarily the Yale 1-meter telescope at CTIO. Frequent and guaranteed access to the telescope will allow long term monitoring campaigns to provide improved data on several known systems as well as the identification and study of systems recently discovered from X-ray data. Optical studies of these systems provide measurement of orbital parameters that lead to limits to the mass of the accretor and proof that the systems actually do contain black holes, and strongly constrain activity in the outer parts of the accretion disk where matter first comes under the influence of the gravitational field of the black hole.